Presidential Young Investigator Award: Analysis of Stochastic in Dynamic Models in Combinatorial Optimization in Queueing Networks

This project is involved with the analysis of stochastic and dynamic vehicle routing problems that arise in transportation, communication, and manufacturing systems. It is also involved with developing new algorithms for performance analysis and optimization of queueing networks. Finally, it is involved with worst case analysis of combinatorial optimization problems. Breakthroughs in any of these problem areas will prove valuable in the development of advanced analysis techniques.